NSF/ISTEC/CONACyT Digital Library Workshop

This proposal requests support for a workshop to bring together US and Mexican computer and information science researchers and librarians at the University of New Mexico. The goal is to share information and knowledge and develop a template for creating large-scale digital libraries initiatives, and to develop a case study from the template focused on a Mexican Digital Library Project that will enhance current practices in Mexico and link to existing projects in the US and other coutries.